Learning Solutions: Investigating Fundamental Tools, Resources & Strategies to Support Professionals Addressing Persistent Issues in STEM

Across the United States, individuals, organizations, and communities are wrestling with a wide array of challenging and persistent science, technology, engineering, and mathematics (STEM)-related problems. A few examples include ensuring more equitable access to STEM careers; building capacity for rural libraries to support STEM learning; and supporting greater cyber literacy among youth. The good news is that thousands of individuals, organizations, and communities are coming up with great ideas for how to confront these problems; many of them supported by the NSF. Unfortunately, most will encounter significant roadblocks to success along the way, but not because of bad ideas. Most change agents falter along the lengthy and often convoluted pathway between idea and successful execution because they bump up against barriers they do not expect or know how to overcome. This Pilot and Feasibility Study will create Learning Solutions, a multi-platform program designed to support those people and entities engaged in work that cultivates the public’s understanding of, engagement with, and interest in STEM fields and STEM-related information. First, the project will systematically identify the real, but often unspoken issues that individuals, organizations, and communities run into as they work to bring about significant and impactful STEM-related change. Then, the project will assemble, curate, and make digitally available a collection of tools, resources and strategies designed to help someone understand and resolve these kinds of issues if and when they arise. By better understanding the experiences of change agents, the challenges they face, and the creative learning solutions they enact, this project will ensure that more change agents successfully access the learning know-how they need, when they need it, in curated, easy-to-digest formats. This award is funded by the Advanced Informal STEM Learning program which contributes to STEM engagement and literacy, workforce development, and educational success via supporting new approaches to and evidence-based understanding of STEM learning in informal environments. Learning Solutions will build capacity and will help more professionals successfully bring more good ideas to fruition.

The target audience for this Pilot & Feasibility phase of Learning Solutions will be STEM professionals working at the intersection of STEM and society across diverse sectors. It will focus on change agents -- individuals who want to be or who already are engaged in community-based, action-oriented STEM-related change projects, whether acting on their own, within an organization, or as part of a broader community of organizations. To achieve the goal of making STEM-related change easier to accomplish, Learning Solutions will implement a multi-step process. With input from five Critical Advisors, 20 Key Informants, and ultimately hundreds of change agents, project staff will: 1) Utilize an iterative process of in-depth interviews and broadly disseminated surveys to identify the major understandings, skills and processes that current and past STEM-related change agents have experienced as impediments to their success; 2) Determine how best to describe and categorize these issues across diverse problem spaces; 3) Select twelve issues, based on which are the most frequently mentioned and/or perceived to be the most critical or challenging, and research and curate the best and most authoritative resources responsive to these dozen issues; and finally, 4) Use a variety of platforms (e.g., social media, traditional media, digital and in print publications, podcasts, panels, and group presentations) and utilization metrics to ensure effective digital delivery of potential solutions to the selected issues. By the project’s end, we will have identified some of the key challenges the STEM-related change agents who work in communities across America regularly encounter, as well as the feasibility of developing a mechanism for helping those change agents discover preexisting and readily accessible resources to assist them in resolving those challenges.